Organization of the Topical Meeting on Optical Computing August 30 - September 2, 1988

This topical meeting on "Optical Computing" is international in scope and includes a large number of top researchers in the field. Topics to be discussed include nonlinear optical phenomena, optical light modulators, optical interconnects, optical processors, optical neuro- networks, massively parallel architecture, symbolic processors, etc. The meeting should be an extremely excellent breading ground for scientific exchange in a field that offers tremendous potential for advanced computing power.